Postdoctoral Fellowship: MSPRF: Lorentzian Properties of Polynomials from Algebra and Topology

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Helena Hafner is “Lorentzian Properties of Polynomials from Algebra and Topology”. The host institution for the fellowship is The University of Washington and the sponsoring scientist is Sara Billey.